An Autostereoscopic Display for Telerobotic Applications

This work is to make available an autostereoscopic display for teleobotic applications. User dissatisfaction with awkward 3D display technologies tends to negate the benefits of 3D visualization. This effort uses an autostereoscopic LCD display to provide a compact and portable systems for 3D display. It avoids the use of special glasses or head-mounted display devices to achieve 3D perspective. The user's left and right eyes received binocular images and produces a visual perception of objects such that the user has the impression of looking through the display window rather than looking at the display screen. The use of this device in telerobotic systems will enable the user to view the end-effector and manipulated objects with greater utilization of human perception and with increased precision and safety.//